Shipborne Radiation Measurements During the Aerosol Characterization Experiment (ACE)-Asia

This project provides radiation measurements and their interpretation during the ACE-Asia (Aerosol Characterization Experiment - Asia) intensive field program. ACE-Asia is a multi-investigator, international program designed to characterize the chemical properties and radiative effects of aerosols in the outflow from eastern Asia. The investigator will collaborate closely with scientists funded by the NASA SIMBIOS (Sensor Intercomparison and Merger for Biological and Interdisciplinary Oceanic Studies) program who will perform a suite of radiation measurements and compile and interpret these data for the purpose of understanding the radiative effect of aerosols in the region. The PI will also deploy additional radiation instruments and perform calculations of radiative forcing. The results will be compared to those from INDOEX (The Indian Ocean Experiment). This research is important because it may lead to improved understanding of the effects of pollutents from East Asia on the climate of that region as well as that of Pacific regions downwind of the East Asian coast.